Water Distribution Infrastructure Management System: An Analytical Decision-Making Framework for the Planning of Rehabilitation Integrating Statistical Failure Models

Proposal: CMS-0118376
PI: Symeon Christodoulou
Institution: Polytechnic University of New York
Date: August 2, 2001

Abstract: Water Distribution Infrastructure Management System: an Analytical Decision-Making Framework for the Planning of Rehabilitation Integrating Statistical failure Models

The overall objective of this research is to enrich the state of decision-making as it applies to water pipes assets management and rehabilitation programs. The essential questions are: (1) what actions should be taken to ensure that the physical assets are managed in a cost efficient way? (2) when should such actions be taken?

The proposed research expands upon the current studies conducted at Polytechnic University's Urban Infrastructure Institute (UII) in cooperation with European research centers. It will focus on the evaluation of degradation models, and on the development of an analytical framework for risk management using New York City as a case study.